REU: Research Experiences in Cell Biology for Undergraduates

This award provides funds to establish a Research Experiences for Undergraduates Site for Research in Cell Biology for Undergraduates at the University of Cincinnati. Students will be directly involved with "hands-on bench research", reading reviews and the primary literature, discussing their projects with the investigator, graduate students, research assistants and postdoctorals in individual weekly lab meetings, making presentations to the department, as well as giving papers at regional and national professional meetings. Student-faculty and undergraduate-graduate student interactions, student participation in professional activities, the commitment and financial support provided by the institution, the presence of support groups such as Sigma Xi, the opportunity for participation in the national biology honorary, Beta Beta Beta, and exposure to a group of dedicated faculty researchers representing both sexes and diverse ethnic/race backgrounds who provide useful "role models", help to encourage undergraduates to pursue research careers. Students from undergraduate colleges in the greater Cincinnati area and several other liberal arts colleges and public and private universities in the state of Ohio and neighboring state will be recruited for this program. Approximately half of the students selected will be from outside the University of Cincinnati in an effort to include those who ordinarily do not have research opportunities available to them. Student selections will be based on achievements in course work, taking into consideration participation in other activities, evaluations of their performance by persons who are familiar with the candidates, and previous research experience. A statement of research interest will be used for matching a supervisor with a trainee. Qualified, minorities and the disabled will be recruited by direct contacts as well as normal means of recruitment.